Comparative Scientific Tradition: a Bibliography of works onNon-Western Science...

An annotated bibliography of more than 1200 items will be produced covering Asian, African, Islamic Middle East, Latin American and precontact North American science and medicine. This bibliography should be of value to teachers, students and curriculum developers who want to include examples of the cultural relativity of the scientific enterprise. The bibliography will be arranged by place with an extensive subject index. The bibliography will be published and the ideas disseminated to teachers through networks, partnerships, journals and talks.